Mathematical Sciences: Unknotting Numbers, and Essential Surfaces and Laminations in Knot Exteriors

The investigator and William W. Menasco of SUNY-Buffalo have recently proved an enhanced version of the venerable Tait conjecture for alternating knots, as well as the cabling conjecture for alternating knots. They will broaden their investigations into geometric questions concerning specific families of links. They will seek to characterize knots of unknotting number one within certain classes, for instance the classes of alternating knots, Montesinos knots, and arborescent knots. They hope to establish an effective procedure for determining the unknotting number of knots within these classes. They will also seek information on the unknotting number of a cabled knot and will investigate the old conjecture that unknotting number is additive with respect to connected sum. They will seek to prove that alternating knots have property P, that all boundary slopes of alternating knots are even integers, and that alternating links are determined by their complements. They will endeavor to develop techniques for constructing essential laminations in alternating knot exteriors, and in the case where the boundary slope is rational, they will examine the completions of these laminations in the closed manifold obtained by appropriate Dehn filling. Knots are rather elementary geometric objects whose really interesting properties are topological. By this we mean that two geometric knots do not differ in an interesting way if one of them can be transformed to look just like the other without cutting or untying it, just by pushing its string about to rearrange the crossings. Topologists say that they are two different geometric realizations of the same topological knot. Nevertheless, it is not a trivial matter to recognize when one complicated geometric knot is topologically different from another, rather than just a different geometric realization. This problem can be addressed by computing certain numbers or polynomials which are called "topological invariants," meaning that they always have the same value for different geometric realizations of the same topological knot. The problem would be reduced to pure algebra if there were one invariant which also always had different values for geometric realizations of different topological knots, but life is not so simple -- no single invariant achieves this ideal, nor even all the known invariants taken together. It is therefore valuable to investigate new invariants, some of the most useful being those inspired in recent years by ideas from quantum physics. The investigator has been in the thick of this activity and has been particularly successful in applying some new polynomial invariants to settle old questions about alternating knots. He will continue to exploit these techniques.